SHF: Small: Improving the Applicability of Haskell-Hosted Semi-Formal Models to High Assurance Development

In engineering practice, models are
an essential part of understanding how to build complex systems. In
this project, high-level models and efficient implementations of
computer systems will be developed side-by-side under a single
framework that bridges the gap between them using a high degree of
automation. This is possible due to the use of a modern functional
language for both the model and implementation, and the deployment of
a new and powerful general-purpose and semi-automatic refinement technology.

The functional language Haskell has already enjoyed considerable
success as a platform for high-level modeling of complex systems with
its mathematical-style syntax, state-of-the-art type system, and
powerful abstraction mechanisms.
In this project, Haskell will be used to express a semi-formal
model and an efficient implementation, taking the form of two distinct
expressions of computation with the same mathematical foundation.
The project develops tools and methodologies that use transformations like
the worker/wrapper transformation to construct links between these models
and implementations, lowering the cost of the development of
high-assurance software and hardware components in application
areas like security kernels and critical control systems.
Lowering the cost of linking semi-formal specifications and models to
real implementations will have considerable
impact. For example, Evaluation Assurance Level (EAL) 5 and 6 of the
Common Criteria call for semi-formal methods to construct such links,
and this project addresses keys part of this requirement.